REU: Research Experiences for Undergraduates

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Harvard University. Students will participate in projects involving ecolgoy, evolution, animal behavior and genetics.